CCK Receptors: Brain and Behavior

9311054 Jacobson Cholecystokinin (CCK) is one of the most abundant peptides found in the mammalian central nervous system. It appears to modulate many centrally controlled functions, including respiration, thermoregulation, reproduction, nociception, anxiety, and memory. By far the best-known role of CCK, however, is its action as a feeding satiety factor. Recently, Dr. Jacobson found CCK receptor binding in the facial motor nucleus, a substrate that mediates facial movement or expression, including nursing. Therefore, Dr. Jacobson speculates that CCK may also have a central effect on motor systems involved in the control of feeding-related behaviors. Utilizing the methods of immunohistochemistry and receptor autoradiography, she will determine if the cholecystokininergic system is playing a role in nursing behavior. Dr. Jacobson will compare the distribution of CCK receptors in neurons located within the Vllm nucleus which innervates facial muscles in neonates of different species. She will then use a metabolic marker to determine how manipulations in feeding, and the exogenous administration of CCK or its antagonists, affect the activity of neurons in developing motor systems. The results from these studies will further our knowledge on the central mediation of feeding behavior, and the role of cholecystokininergic system in this process. Understanding this fundamental mechanism could in turn have beneficial effects on management of obesity and eating disorders. ***